U.S.-Federal Republic of Germany Cooperative Research with the Deutsches Elektronen-Synchrotron (DESY) to Construct theZEUS Detector

The award would allow Professor Frank J. Sciulli, Columbia University, and other American scientists to collaborate with Dr. Guenter Wolf, Deutsches Elektronen-Synchrotron (DESY), Hamburg, and Professor Erwin Hilger, University of Bonn, Germany (FRG). They will work with other scientists at DESY to construct a 250-ton uranium-scintillator barrel calorimeter to be incorporated as a major component of a detector (ZEUS) for scientific research with an electron-proton collider (HERA). HERA is under construction in Hamburg and is scheduled to begin operation in 1990. To design and construct ZEUS, the U.S. group must visit DESY to work on shared technical problems concerning components of HERA that are being designed elsewhere. Professor Sciulli's group is responsible for the electronic readout system of the entire calorimeter system. They will require the use of specialized electronic components which must be designed, made into prototypes, and tested. His group will develop the components in collaboration with private industry in the U.S. The success of this project could have important consequences for high energy physics and electronics engineering.